Mathematical Sciences: Comparative Study of Waves in Fluids and Plasmas

The principal investigator will study equilibrium configurations, instabilities and waves in fluids and plasmas. In particular, he will focus attention on fluid structures known as vortex rings with swirl and their plasma counterparts known as plasma tori. Such equilibrium configurations are derived from a variational principle, and the principal investigator will employ the venerable method of geometric optics to study the stability properties of these equilibrium states. In order to study accurately the behavior of fluids within the core of the earth one must appreciate the fact that under many sets of circumstances the fluids within the core act more like plasmas (ionized fluids) than ordinary gases and liquids. In this project the principal investigator will first make a comparative study of equilibrium structures and their stability in both fluids and plasmas. Then he will apply these results to describe the long-term evolution of small-amplitude perturbations to stable vortex rings and plasma tori of the type found in the earth's core.